Harmonic Measure Versus Hausdorff Measure on Uniformly Perfect Sets; Geometric Properties of Julia Sets

ABSTRACT:

The goal of the project is to establish the
singularity of harmonic measure
and of Hausdorff measure on some totally disconnected,
uniformly perfect sets (subsets of the real line or
Julia sets of rational functions). The results rely on
estimates of logarithmic capacities, Green's function
and harmonic functions near the boundary of plane domains.
It combines potential theoretic arguments with ergodic theory
and dynamical systems,and uses techniques introduced by Carleson,
Jones and Wolff, Makarov and Bourgain.

The fractal sets I will study represent the chaotic part of
a dynamical system. Almost all the phenomenon in life
are dynamical systems: complex ones like weather, earthquakes
and spreading of disease, and simple ones,
like the game of billiard.
Harmonic functions and potential theory were first of interest to
physicists and engineers, particularly in the fields of
thermodynamics and electro-magnetics. All the successes
in waves today stem from this theory.
The transmission of signals electro-magnetically between antennas,
the design of antennas and their placement in arrays is one of
the current problems that apply potential theory.